SCREMS: Building a Statistical Computing Environment to Support Scientific Research

The Scientific Computing Research Environments for the Mathematical
Sciences grant provides crucial resources to the computing
infrastructure within the Department of Statistics at the University
of California, Berkeley. The grant will fund the acquisition of a
four-processor dual-core AMD Opteron compute-server, an Apple X-serve,
a 1.5 terabyte Raid Tray with Network Attached Storage Appliance and
tape drive. The compute server will be able to handle the heavy I/O
and memory requirements associated with processing and analyzing large
data sets. The heterogeneous nature of the Department's research
computing environment places complex demands on network file
transfer, and the network attached storage device will provide greater
reliability and functionality by supporting native file system
integration across all platforms. The Apple Xserve running an Xgrid
controller will enable researchers to incorporate the Department's
Intel dual-core iMacs into the existing distributed computer
infrastructure.

The computing equipment acquired under this grant will support several
interdisciplinary research projects in astronomy, bioinformatics,
genomics, and neuroscience. These projects bring with them heavy
computational demands due to processing large data sets, and they push
the frontiers of statistical methodology and theory in support of the
advances in the application-specific problems. It is critical that
researchers have the ability to move, store, and rapidly process large
data sets to support these collaborative research projects. These
collaborations include: the Taiwanese American Occultation Survey to
determine the distribution of comet-sized bodies in the Kuiper Belt;
the Gamma-ray Large Area Telescope (GLAST), a $NASA$ mission to detect
gamma-ray pulsars; the development of fast algorithms for data
compression for addressing the increasing prevalence of high-volume
data sets in modern scientific contexts; applications in neuroscience
pertaining to in vivo experimentation of cortical neurons; and several
bioinformatics and genomics projects. The computing equipment will
support the research programs of approximately twenty graduate
students and seven post doctoral fellows. In addition, it will support the
research of undergraduates involved in the Department's research
apprenticeship program.